Microwave Spectroscopy of Molecular Ions in Discharge and Magnetically Confined Afterglow Plasmas

In this Experimental Physical Chemistry project sponsored by the Chemistry Division, Prof. Woods (University of Wisconsin) will develop new methods of producing high density low temperature plasmas, optimized for producing molecular ions suitable for microwave structure determinations. The high resolution spectra obtainable by these techniques will yield accurate molecular geometries and dipole moments. The direct determination of electric dipole moments of charged molecules represents a new and unusual way of improving our understanding of chemistry in electrically conducting media. %%% Plasmas, a "fourth state" of matter, consist of a tremendously corrosive, reactive high temperature gas of electrically charged atoms or molecules. Prof. Woods' project in developing improved plasma sources and analyzing their microwave spectra has important implications for the chemistry of the interstellar medium and for plasma reactors used in materials processing.